Doctoral Dissertation Research in Geography and Regional Science

The failure of many forms of vegetation to regenerate results both from human-induced environmental change processes and natural processes. Moreover, both types of impacts may be constrained within the normal dynamics of certain species. In the case of long-lived species that are capable of cyclic regeneration patterns, it is necessary to conduct historical biogeographical studies in order to interpret their regeneration status. Absence of seedlings and saplings in California oak woodlands indicates that the present rate of oak regeneration is insufficient to maintain existing stands. Evidence suggests that the failure to regenerate is a result of human-induced environmental change associated with European settlement. This doctoral dissertation project will reconstruct the history of oak woodlands in California over the last 500 years. Fossil pollen analyses and an automated image analysis system to quantify changes in charcoal abundance will be used to assess the impact of European settlement on oak regeneration and fire frequency. This project will provide a history of vegetation change essential to understanding changes in regeneration over time and to evaluating the extent to which the current failure of California oaks to regenerate is caused by human-induced change. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.